Functional Genomics of Plant Phosphorylation

Reversible protein phosphorylation is a key component of virtually every regulated biological process. Approximately 5% of the genes in higher plants are directly involved in signaling by protein phosphorylation. The goal of this project is to integrate bioinformatics and genetics to investigate phosphorylation-dependent signal transduction in plants. Bioinformatics will be used to mine plant sequence databases to gain new insights into the structural and functional relationships of the genes and proteins involved in post-translation modification by phosphorylation. Annotation of every protein kinase and phosphatase in Arabidopsis thaliana will be complemented with enhanced annotation for genes with published information. A community interface for data submission (published and unpublished) will be created and bioinformatics training will be provided to plant scientists who can then directly access and modify the data base from their home institution. A network of laboratories will both identify knockouts in genes encoding protein kinases and phosphatases and characterize the phenotypes of knockouts. Each of the network laboratories will focus on a group of proteins in which they are knowledgeable or expert. The network laboratories will also contribute to the database annotation for the groups of proteins for which they are experts. This project will yield significant advances in understanding the molecular mechanisms controlling cellular function in plants and will ultimately facilitate the development of improved crops.

Deliverables:
1. Plant Protein Phosphorylation Database : http://plantsp.sdsc.edu/ (Michael Gribskov, [email])
2. Arabidopsis protein kinase and phosphatase T-DNA insertions are deposited with the Arabidopsis Biological Resource Center
3. Phenotypic characterization of the gene knockouts will be available at http://plantsp.sdsc.edu/